Bloomington Geometry Workshop

The Bloomington Geometry Workshop brings together leading geometers to discuss and disseminate recent advances in geometry and related fields. The workshop has already established a tradition of excellence which we wish to further and enhance in the coming years. This year's list of speakers includes Stephanie Alexander, Robert Gulliver, Tadeusz Januszkiewicz, Ilya Kapovich, William Minicozzi, Liviu Nicolaescu, Christina Sormani, Giuseppe Tinaglia, and Frederico Xavier. These speakers will inform participants of current developments in the areas of minimal surfaces, geometric group theory, geometric PDE's and other areas of geometric analysis.

The purpose of the Workshop is to help foster cooperation and collaboration among researchers in the Midwest region as well as help educate graduate students and young researchers about the
latest developments in geometry. Most of the funding will be used to support the travel of graduate students and recent PhD's. These young researchers will come away from the workshop better prepared to take part in current research in geometry, a field of basic research that is important to computer graphics, quantum physics, material science, and many other scientific disciplines.